Conference of Food Engineering 1995 (CoFe '95), Chicago, IL November 2 - 3, 1995

9528034 Narsimhan This conference will provide forum to help determine future research directions for the field of food process engineering. Many important technological advances are occurring in the biophysical understanding of foods. This conference will help to consider these advances by combining engineering fundamentals with the basic principles of food science. This will be accomplished by inviting leading researchers in different areas, including both industry and academia. The program includes sessions on: (1) the physical chemistry of foods, covering the topics of emulsions and foams, protein adsorption, physical/chemical properties, and moisture relations in foods; (2) transport processes and unit operations, covering the topics of rheology, frying/dehydration, extrusion, thermal and non- thermal processing, and separations/packaging; and (3) innovative food manufacturing processes, covering the topics of pilot plants and scale-up, research in food engineering, innovative concepts in food processing and manufacturing processes, and engineering issues in food manufacture. Participation at this conference will be international and will include food engineers, food scientists, chemical and biochemical engineers, food chemists, and food microbiologists. ***